U.S.-China Cooperative Research (Physics): Multiply-ExcitedAtomic Systems

This proposal involves collaborative research with Chinese scientists from Jilin University on the saddle point method and applies the complex coordinate approach to compute resonance widths in atoms. Of particular interest are branching ratios between optical and Auger channels, highly excited four and five electron systems, core excited Auger states spin dependent processes and the interpretation of experimental data of highly states. This project combines the expertise of the Chinese scientist in multi-channel quantum defect methods with the experience of Dr. Chung in addressing this useful niche in atomic theory.